Symposium on "Dynamic Failure" and "Thin Film Mechanics"

Symposium on dynamic failure and thin-film mechanics

The California Institute of Technology requests funding for a symposium
on "Dynamic Failure" and "Thin Film Mechanics," to be held January
16th-18th, 2003. This symposium will assess the state-of-the-art in
research issues in these fields and their impact on engineering
applications. The symposium will feature 25 invited speakers who are
established and emerging leaders in Mechanics, Materials Science and
Engineering, Mathematics, Applied Physics, Bioengineering, and
Geomechanics and will include minorities and women from academia,
industry and research laboratories. Presentations will occur in 5-6
sessions, none in parallel, to facilitate close interaction of
participants. The meeting will culminate in a panel discussion to
summarize the state-of-the-art in the field and identify research
opportunities. The presentations and discussion summaries will be
collected in a bound volume of the Journal of the Mechanics and Physics
of Solids (JMPS). JMPS editors have also allocated 375 pages in the
journal for material from this symposium.